Dynamics of Redundant Multibody Systems

This research studies the dynamics of redundant multibody systems which have superfluous degrees of freedom. It represents a significant step forward in the development of sophisticated models for the study of a wide variety of physical systems such as robots, manipulators, chains, space structures and biosystems. The principal research questions addressed are: What is the optimum motion of the system to minimize energy expenditure; What configuration will minimize the internal forces and movements and; What movement will accomplish a given task in the least time for constant energy expenditure.